Space Weather: Investigations with the Bruny Island Radio Spectrometer

The investigator will make the data obtained by the Bruny Island Radio Spectrometer available for Space Weather prediction. These data are in the frequency range from 3 MHz to 47 MHz and bridge the gap between ground-based and space-based solar burst observations. Observations in this frequency range are important for Space Weather prediction because they cover a range of heights in the solar atmosphere where many disturbances die away while others originate and propagate out into the interplanetary medium. Improvements to the Spectrometer would be made to enhance its temporal coverage, sensitivity, and reliability. A modest scientific program would be carried out to evaluate the effectiveness of the Bruny Island data in the context of Space Weather prediction.